Purchase of Superconducting FT-Nuclear Magnetic Resonance Spectrometer

The analysis of coupling constants and the chemical shift data from a NMR spectrometer provides basic understanding of the inter- and intra- molecular dynamics associated with subtle changes in the environment of probe nuclei. The NMR data help establish structure-function correlations in which the structural elucidation of intermediates is critical for developing new synthetic schemes for the preparation of bioactive compounds. The results of such analysis would have impact in areas such as catalysis and drug design and development. This award will allow the Department of Chemistry at California State University at Northridge to acquire a high field multinuclear NMR spectrometer for research in the following areas of chemistry: 1. Solution Dynamics of Mercury Bridged Transition Metal Clusters 2. Low Temperature Protonations of Transition Metal Clusters 3. Rates of Carbon-Metal Hydrogen Exchange in Trinuclear Clusters 4. Stereospecific Synthesis of Biologically Active Phospholipids 5. NMR of Nitroxide Spin Labels 6. Conformational Analysis of Pinnacolamines and Related Compounds 7. NMR Studies of Membrane Lipids and Enzymes and the Metabolism in Early Sea Urchin Development